SHF: Small: Semantics, Static Analysis, and Refencing of Concurrent Programs with Weak Memory Models

Modern computers have parallel multicore architectures sharing a
hierarchy of caches and memories from fast and expensive ones to large
and cheaper ones. The consequence is that not all cores running
concurrently see the shared memory in the same way: some see newly
stored values while others see older ones. This is called weak
consistency models for shared memory on a single chip or memory
distributed on several chips or on networks. This modern design makes
the task of designing and programming parallel computers very complex.
In particular the same program may have very different behaviors when running
on different architectures whereas the same program had the same effect on all
machines of the previous generation.

This project define a generic formal semantics of parallel programs with weak
consistency models parameterized by a formal definition of the computer
architecture. Based on this parameterized semantics, the project investigates
invariance proof methods to be used by programmers and verification tools to
prove properties of parallel programs with weak consistency models. The project
contributes to formal methods and tools for concurrent programming which, by
the foreseeable evolution of hardware design, will be inevitable in the future.
The publications and prototypes from this project are widely disseminated.